Instrumental Methods and Food Analysis: Theory and Application.

This project adapts and incorporates modern analytical techniques into the Animal and Food Science undergraduate curriculum by establishing an undergraduate student instrumental analysis laboratory course with a focus on foods. Experiments included represent adaptation and implementation of exemplary practices gleaned from the Principal Investigator's survey of major Food Science Departments across the United States. Emphasis in the laboratory is on understanding: the operational principles and theory of current instrumentation; the differences and similarities of analyzing a sample by various instrumental methods; and learning to critically evaluate, interpret, compare, and effectively communicate results. A laboratory manual is being developed and disseminated.